Expanding Participation and Professional Development for Faculty at Primarily Undergraduate Institutions

This award will provide travel stipends and professional development opportunities for early- to mid-career geoscience faculty from non-R1 U.S. two-year colleges (2YCs) and four-year colleges and universities (4YCs) to attend a professional geosciences conference. Professional conferences serve as a hub for knowledge exchange, professional engagement, and leadership development. The program extends beyond traditional travel support by incorporating intentional mechanisms for sustained engagement and leadership development.

Findings will contribute to understanding how disciplinary societies can strengthen professional communities, and support faculty at undergraduate-serving institutions. This project will expand access for faculty, strengthening geoscience education. Participants will bring cutting-edge research, innovative teaching practices, and expanded professional networks back to their institutions, impacting student engagement and fostering undergraduate research opportunities.